Frontiers of Applied Physics--High School Teaching Modules

Only a small fraction of American high school students today take physics. Recognizing this, a partnership of University professors, high school teachers, and industrial scientists and engineers will develop teaching materials and strategies to enhance secondary-level physics education through the integration of mathematical and technological applications into the curriculum. Instructional materials needed to accomplish this will be defined, developed, field tested in a number of cooperating school districts, and disseminated. Materials developed will include suitable laboratory experiments. High school physics, mathematics, and technology teachers will work together on the project to insure that materials will appropriately interrelate these course areas and meet the needs of students across a broad spectrum of the secondary student population. Industrial scientists and engineers will participate fully in the preparation of the materials; they will help define pertinent examples of current technology, provide access to industrial laboratories and other facilities, and share insights on future directions of technological development. Cost sharing by the partners will total 70% of the NSF funding.